International Symposium on Fiber Reinforced Concrete, Madras, India, 16-19 Dec. 87, Group Travel Award in Indian and U.S. Currencies

Objectives and Relevancy: This project supports U.S. participation in the International Symposium on Fibre Reinforced Concrete planned for December 16-19, 1987 in Madras, India. The symposium is attracting contributed papers from various European countries, the U.S., Canada, Australia, and Japan as well as from developing countries, in addition to invited papers on the state-of-the-art by eminent speakers. Specific topics to be included are: failure mechanisms and mechanical properties; steel, glass, organic and vegetable fibers; methods of fabrication and cast-in-place construction; applications; durability and long term performance; and design and economic considerations. This project fits the objectives of the U.S.-India program which include supporting U.S. scientists at major international meetings in India where there are likely to be scientific benefits to the two countries. Merit: The topic is of considerable importance to scientists and engineers in the U.S. and in India. Fiber reinforced concrete is offering the construction industry many advantages because it makes possible the variation of concrete properties to meet specific needs, such as earthquake damage resistance . These advantages have stimulated the increase in usage of these materials. Indian and U.S. scientists as well as those from many developed countries have pursued research in this area over the last two decades, and are likely to benefit from the exchange of information in this meeting. Funding: None other than this action.